The Transcription Machine: "Assembly & Function " Austin, TX on April 2-4, 1993

This conference, "This Transcription Machine: Structures and Functions" will be held in Austin, TX from April 2-4, 1993 meeting will cover areas such as how DNA-Protein and protein-protein interactions lead to assembly of functional transcription complexes, how long-range interactions permit recognition between various transcription factors, and the genetic and developmental consequences of transcriptional control. NSF funds will be used to support travel of young and minority scientists to attend the meeting. %%% This conference covers an important and rapidly developing field. The format and setting of the conference provides a good environment for interaction of young scientists with established investigators in the field.